Resource Allocation Problems in Wireless Communication Networks

The expected service demands in wireless information networks in the near future exceed the current capabilities of these systems. Efficient allocation of the limited spectrum will be a critical factor in the design of the next generation of wireless networks in order to meet the future demands. We study two issues related to the resource allocation problem in wireless communication networks. These are the sharing of the locally common, spatially reusable radio channel and the effect of the rapidly changing topology. Regarding the first issue, we propose a queuing model that captures the channel allocation problem in radio networks. The major research goal is to characterize the system performance and to develop scheduling algorithms for sharing the resource efficiently. The throughput of the system and the average packet delay are the two performance measures of interest. In our previous research we characterized the throughput properties of the above model and we gave maximum throughput scheduling algorithms. Regarding delay, we obtained the optimal scheduling policy in a network with tandem topology. We wish to extend the above results with special emphasis on scheduling policies that are implementable in the distributed environment of a radio network. A stochastic model of time-varying topology is also proposed here. The understanding of the effect of the time-variability on the stability and throughput of the system as well as the development of transmission control algorithms that effectively take into account the topology information are the major research goals regarding changing connectivity. Preliminary results have already been obtained for a single-hop network.